UMEB: Integrating Inquiry-Based and Cooperative Learning with Expanded Career Horizons in Environmental Biology

0207090
Connor

The goal of this project is to stimulate students from groups that are currently underrepresented in the sciences to choose careers in environmental biology. This objective will be met by involving students in positive and productive research experiences and by providing close mentoring, group learning activities, and careful advising. Students will work with experienced and aspiring research scientists and environmental professionals in seminars and informal gatherings, thus providing a basis for students to imagine themselves in careers in environmental biology. Students will participate in research focused on understanding 1) the impact of urbanization and agriculture via habitat loss, fragmentation, and degradation, and 2) the effects of introduced species on native species and communities.

Recruiting students from groups underrepresented to careers in environmental biology will broaden participation of all parts of our society in learning how to preserve the natural environment. Focusing on the impact of habitat loss, fragmentation, and introduced species associated with urbanization and agriculture will provide valuable information that may enable us to preserve native species and communities within a human-dominated landscape.
.